Procedures for Analytical Ultracentrifugation

The ultracentrifuge is one of the few instruments that provide direct and reliable information about molecular weights and interactions of macromolecules in solution. Sedimentation equilibrium techniques are especially valuable because of their foundation on equilibrium thermodynamics. They provide the most reliable and foolproof estimates of solution parameters with an excellent degree of precision using interferometric observations of concentration distributions. Sedimentation velocity experiments can yield detailed information about size/shape distributions. Recent advances have made automated on-line interferometric data acquisition a routine and simple procedure. Commercial instrumentation currently provides high-quality absorbance measurements in a new ultracentrifuge. This proposed research will develop procedures and data analysis techniques for characterizing difficult macromolecular interacting system. Equilibrium experiments will be analyzed primarily by various least squares fitting programs that will make possible extensive global fits to physicochemical parameters of the solute (s) with assured confidence limits. Programs will be devised for precisely and automatically monitoring attainment of equilibrium. Novel approaches to equilibrium sedimentation experiments will be explored. Instrumentation will be developed for significant improvement of precision on-line interferometry in both equilibrium and velocity experiments. These various approaches will be applied to problems of topical interest, largely, but not completely, from biotechnology enterprises.